Electromagnetic Induction Workshop

This action provides support for a workshop to be held at LaJolla in early 1988 to map out the future direction of large scale electromagnetic induction research with particular emphasis on including groups not involved in the earlier EMSLAB project and providing high quality field equipment to academic institutions.